Developing an Intuitive Understanding of Matter

An important insight about substances such as gold and glass is that each substance is made up of a unique kind of tiny homogeneous particle. While adults generally share this belief, little is known about how it develops as a child matures. It is crucial to develop this concept in order to make sense of the behavior of various substances and to predict that behavior in everyday life as well as in science classes. For instance, this concept can help children appreciate that matter can exist as invisible particles and maintain its inherent, and in some cases potent, properties; that the inherent properties of an aggregate- -e.g., whether it is safe to touch, eat, inhale--depends more on the nature of its constituent particles than on its gross appearance. This project will chart systematically how this important concept develops by examining whether children think that a substance maintains its identity and inherent properties despite dramatic changes in its chunk or grain size. Identity refers to membership of a certain material kind (e.g., sugar); inherent properties are chemical properties described in ways that even young children can understand (e.g., smells good when it burns); and size can vary from a large chunk to smaller pieces, powder, or even invisible particles. This project will also examine whether this concept helps children appreciate that a substance such as sugar can continue to exist--in tiny homogeneous particles--even after it has become invisible upon dissolution. A third goal is to explore how this concept may be related to the way children and adults generalize what they have learned about one sample of a substance to another sample of the same substance. Discoveries of links among different aspects of children's understanding of matter can inform us about the nature of children's theories of matter. Such discoveries can enrich our understanding of how children and adults develop intuitive theories about the world. Science educators can also make use of such discoveries to develop curricula that young children can understand and from which they can learn.